Mixed Signal: Systematic Characterization and Profile Design of SiGe HBTs for Mixed Signal Wired and Wireless Telecommunications

Because of its high performance, low cost, and compatibility with silicon
CMOS, SiGe HBT technology has recently emerged as a contender for both
mobile and optical networking applications. Current SiGe HBTs designs are
focused on improving the speed of these devices, while our recent
experiments have shown that the optimum device structure for wireless
applications are considerably different. Issues important for mobile and
optical networking, such as 1/f noise, phase noise (frequency domain
sideband and time domain jitter), and linearity, have not been researched
as a function of the device structure, or optimized for
these performance targets.

This proposal is aimed at systematically examining the impact of
bandgap engineering and scaling on all of the device figures-of-merit that
are of interest to both wireless and optical communication IC's, and use
of these results to optimize the SiGe profiles and geometries for next
generation SiGe HBTs. We expect the design tradeoffs to be much more
complicated than in first generation SiGe HBTs, because of aggressive
vertical and horizontal scaling to achieve high speed operation (as high
as 200GHz cutoff frequency and maximum oscillation frequency). In the
process, we will answer scientifically intriguing and technologically
important questions, such as why SiGe HBTs with a nonlinear I-V can have
excellent linearity. This is a brand new area of SiGe device research, and
has a high potential payoff given the exploding industry interest in
applying SiGe technology to wireless and optical networking systems. The
outcome will include a scientific understanding of important open
questions on SiGe HBTs, a modification of the design approach and
methodology, as well as data of the key device figures-of-merit as a
function of SiGe profile. Given the enormous amount of interest in
applying SiGe technology to both wireless and optical networking
applications, we will develop an advanced course on SiGe HBTs, so that the
outcome of the proposed research can be remotely accessed by graduate
students and practicing engineers in industry.